Localization Process, and a New Look at Traditional Theorems in Homotopy Theory

9803766 Chacholski The investigator's research has been primarily in the area of unstable localization theory, with emphasis on certain geometric relations between spaces. These relations are associated with building one space out of another by using basic operations like push-outs and wedges. The primary goal is to understand the lattice of the equivalence classes of these relations (the so called Bousfield and cellular classes). In particular, the investigator has been looking into possibilities of extending the Bousfield classification of a sub-lattice of finite, p-torsion, SUSPENSION complexes to certain non-suspension spaces. For this purpose he has been studying homotopy algebraic structures on spaces that are preserved by Bousfield localization and Dror Farjoun colocalization functors. Hurewicz homomorphisms are an important source of examples of such structures. Many traditional theorems in homotopy theory are reflections of properties of the lattice of Bousfield classes. For example, classically the Blakers-Massey triad theorem was about connectivity of certain fibers, i.e., it was shown that these fibers are built from spheres of some high dimension. It turns out that allowing other spaces as building blocks, one can give more accurate Bousfield class estimations. Moreover, in this way statements that previously seemed not to be related can be unified. This is also a good starting point for investigating similar relations in other settings, especially in cases where one does do not have any natural choice of objects analogous to spheres in the category of spaces. Over the years it has become evident that homotopy theory methods are useful in describing many fundamental concepts and capturing their essential properties. This has happened in a wide variety of settings from manifold theory and algebraic geometry to physics. Homotopy theory is particularly helpful in studying those properties that are local, i.e., that can be observed and analyzed by forgetting the information that is irrelevant to the problem. In this way one can focus on the most essential information and organize data in terms that are easier to grasp. Thus in this case the homotopy theory works as a simplifying tool. As a result, for example, one can see new relations between objects that previously seemed not to be related. Homotopy theory is also fruitfully applied in studying certain algebraic structures (algebraic structures up to homotopy). Ignoring fine structure and using this coarser classification allows one to cover more ground. Physics is one of the main sources of examples of this. Algebraic structures are used in capturing symmetry of objects. In this way homotopy theory can work as a distinguishing tool. An object with more symmetry must be different from one that is less symmetric. Studying the interplay between these two tools is also profitable. For example, to understand better the organization principles of the localization process, it is helpful to know to what extent it preserves a homotopy algebraic structure, and in order to apply these tools fully, one still needs to understand the way they behave in the test case of topological spaces. ***